Travel Support for the First Workshop on Deterministic Multiprocessing (WoDet)

This proposal requests funding to assist approximately 40 US-based researchers to attend the First Workshop on Deterministic Multiprocessing (WoDet) in Seattle, WA, in the first week of October 2009. The goals of the workshop are to initiate a discussion in the areas of deterministic multiprocessing from languages all the to hardware and tools and to spark funding for new research programs. While there is a growing consensus that determinism would greatly help with the programmability challenges of multicore systems, there is still little consensus on many important questions.
The support requested enables the participation of both academic and industry researchers. The PIs also open the workshop to a select set of students who are already working in the area.